Establishing a Digital Library for Earth System Education (DLESE) Evaluation "Toolkit" and Community

ABSTRACT

Establishing a Digital Library for Earth System Education (DLESE)
Evaluation "Toolkit" and Community

This project develops an Earth systems education evaluation resource for users of the Digital Library for Earth System Education (DLESE) and other geoscience educators. The resource, conceptualized as an accessible evaluation "toolkit", is grounded in the needs of Earth system educators, and provides a virtual home for a geoscience education evaluation
community. An evaluation resource specifically tied to the needs of Earth systems education will enable principal investigators to infuse evaluation into their projects more readily, and will provide knowledge about how best to engender learning in Earth systems education. This project establishes a forum and community for evaluation dialogue within DLESE and provides a robust collection of evaluation resources useful for Earth systems educators. The resource will be disseminated through the DLESE infrastructure and through professional society meetings and workshops.